Brain Catecholaminergic Function During Development

Factors which interact with and influence complex learned behavior include circulating hormone levels, brain neurotransmitters and changes in neuroanatomy. In this award, Dr. Cheryl Harding will quantify levels and turnover of two transmitter substances, norepinephrine and dopamine, in a variety of brain regions involved in avian vocal learning. The studies will be done at critical times during brain development and the sensitive period for vocal learning. In adults, levels and turnover of these neurotransmitters in the brain areas under study are strongly modulated by circulating hormone levels. Therefore, circulating hormone levels will also be assessed to determine if changing hormone levels during development have similar effects on neurotransmitter function. This research will look for evidence that these neurotranmitters might be involved in stimulating some of the dramatic neuroanatomical changes which occur in these brain areas during early development and the period of vocal learning. The potential contributions of norepinephrine and dopamine in these areas to the learning of a complex social beahvior and the modulation of this process by circulating hormones will also be assessed. The knowledge gained in these studies will be important in understanding the factors which are involved in the development and learning of vocalization and communication.